Oxidation-Reduction and Homogeneous Catalysis of Organic Compounds by Metal Species

This grant in the Organic and Macromolecular Chemistry Program supports research by Prof. J. K. Kochi, University of Houston, aimed at understanding the dynamics of oxidation-reduction and single-electron-transfer processes in the activation of organic and organometallic compounds. Though this work is directed at elucidating the fundamental steps involved in bond activation, it also has direct applicability to homogeneous catalysis of industrially important chemical reactions and to understanding enzymatic catalysis of biological processes. This project will focus on six studies designed to elucidate and utilize the charge-transfer phenomenon in chemical dynamics, especially of transient ions and radicals formed in solution from molecular electron donor-acceptor complexes. This work has potential application to solar energy storage and to development of molecular memories. Specifically, work will be carried out on: (1) charge-transfer theory and the activated complex, using time-resolved spectroscopy; (2) isolation and molecular structures of donor-acceptor complexes; (3) direct examination of the dynamics of transient ion radicals and ion pairs; (4) photochemical promotion of organic donor-acceptor interactions; (5) organometallic compounds as electron donors in solution and in the solid state; and (6) photoredox reactions of cations and anions. This work continues research previously supported by Foundation grant, CHE-8401324.